CPS-FR: A Cyber-Physical-LLM-Human System (CPLHS) Framework for Vision-based Drone Applications

Drones are playing a growing role in engineering and public service applications, including infrastructure inspection, environmental monitoring, disaster response, and precision agriculture. However, most drone missions still rely heavily on trained human operators, making missions time-consuming, costly, and difficult to scale. This project will develop the scientific foundation for embedding artificial intelligence (AI) into drone-based cyber-physical systems to improve operational efficiency, reduce cost, and enhance scalability. To achieve this, the project will advance AI methods, develop dynamic modeling approaches, and refine autonomous control algorithms. Ultimately, this work will transform current drone operations from manually controlled tools into intelligent agents that can understand mission goals, adapt to changing field conditions, and act safely under human guidance. By implementing the proposed work, infrastructure inspections will become safer, environmental monitoring will become more efficient, emergency response teams will be more aware of the situations, and farmers will possess smarter tools for crop management. In this way, the project supports the national interest by advancing AI, robotics, and cyber-physical systems, while enabling safer, more efficient, and more scalable drone technologies for public welfare and economic prosperity.

The technical goal of this project is to develop a foundational framework for highly autonomous and adaptive vision-based drone applications. The research focuses on integrating large language model (LLM)-based reasoning, human expertise, perception, and flight control into a unified Cyber–Physical–LLM–Human System (CPLHS). 1) A hierarchical CPLHS architecture will be developed to integrate LLMs into traditional Cyber–Physical–Human Systems. This architecture will support real-time decision-making and reduce human workload. A few-shot retrieval-augmented generation algorithm will help the system adapt to new drone missions without extensive tuning. 2) An LLM-guided reinforcement learning framework will be developed to compensate for image degradations such as glare and blur through closed-loop drone motion control. 3) A drone–gimbal coupling dynamics model and an adaptive priority control framework will be established to coordinate mission tracking, image-quality correction, LLM-generated commands, human supervision, and flight stability. 4) The proposed framework will be experimentally tested through real-world aerial vision missions. The final outcomes will advance fundamental understanding of AI-enabled autonomy in cyber–physical systems and enable scalable design strategies for intelligent field-deployable aerial robots.